Computer Equipment Upgrade for Meteorology Program

Rockwood
ATM-9873685

The Department of Earth and Atmosphric Sciences at Metropolitan State College of Denver requests matching funds from the National Science Foundation (NSF) Unidata Equipment Grant program. The funds will be used by the Meteorology Program to purchase new weather data receiving and display computers to support the educational objectives of the Program and to increase participation in the NSF-sponsored Unidata Program.

The Meteorology Program is an active member of Unidata and has not proviously submitted a proposal under the Unidata Equipment Grant program. Its current Unidata-related computing equipment will soon be obsolete and unable to meet the requirements of the curriculum or educational projects the Program wishes to pursue.